Navajo Community College Science Honors Program

The Shiprock Campus of Navajo Community College is operated by the Navajo Tribe and serves 800 students per year in the largest population center of the Navajo Nation. The College is requesting $566,234.30 from the National Science Foundation to implement an honors program for Navajo students entering science fields. Support is requested for 1) a half- time Project Director and secretary, a Summer Program Coordinator and Staff, and Academic Tutors; 2) funds for staff travel to implement and coordinate the program and student travel for enrichment activities; 3) instructional supplies to include instructional software in advanced subject areas and lab equipment to enrich course work; 4) financial assistance to students of $2500 per year; 5) funds for recruitment activities and materials to attract Navajo students into science fields, and 6) computer equipment and software for tracking and evaluation of the program. In addition the college will be requesting $127,040 in matching funds from various private industry sources as well as Lawrence Livermore and Los Alamos National Laboratories. This support will result in the recruitment of 10 academically well qualified students each year to the Shiprock campus of the Navajo Community College in science fields where they will be prepared through a special summer program to enable them to succeed. Financial assistance will be provided, as well as travel funds to visit local industry, National labs, and the trip to the Annual Meeting of the American Indian Science and Engineering Society. The following summers the students will be placed in job experiences in local industry, research ongoing at the college or at National lab sites in New Mexico and California. Some placements may be in programs at other colleges and universities. A special feature of the program is the academic tutoring to be provided by junior level university students doing a cooperative education project at Navajo Community College. Another feature is the adaptation of the summer institute program from the California Polytechnic State University at San Luis Obispo (Cal Poly) to the Navajo setting, and the close cooperation between Navajo Community College and Lawrence Livermore National Laboratory in visits, internships, long-term equipment loans, and other advice and collaboration.